Conference: KUMUNU 2026

This award supports participation at the KUMUNU 2026 conference, which will be held at the University of Kansas in Lawrence, Kansas from October 10-11, 2026. The conference will focus on recent advances in commutative algebra and related mathematical fields such as algebraic geometry, combinatorics, and representation theory. Commutative algebra is essentially the study of polynomials equations. The simplest examples of polynomials are those arising in elementary geometry, i.e., the equations for lines, parabolas, circles, and cones. Polynomial equations are among the most basic and versatile of all equations, and as such, are ubiquitous across all sciences. They also play an important role in engineering, robotics, cryptography, and economics, to name just a few areas. KUMUNU 2026 will serve to unite the many researchers that reside within the Great Plains region, and some from well beyond it, to disseminate new and exciting research results and methods, and to foster collaboration, especially between researchers at different career stages. The conference will also provide professional development opportunities to early-career researchers through invited talks and a poster session.

KUMUNU 2026 will focus on recent innovations in commutative algebra and adjacent fields, including those in prime and mixed characteristic methods, rings of differential operators and their modules, and combinatorial and multigraded commutative algebra. The conference will feature lectures on cutting-edge results from experts specializing in toric geometry, singularity theory in prime and mixed characteristics (with connections with complex birational geometry), liaison theory, and Bernstein-Sato polynomials. The conference website is https://kumunualg2026.ku.edu.